Chiral Organo Sulfonium and Selenonium Reagents for Asymmetric Synthesis

Professor Brenda Kesler, Department of Chemistry, San Jose State University, is supported by the Organic and Macromolecular Program of the Chemistry Division under a Research Planning Grant to explore the synthesis of chiral sulfonium and selenonium reagents, and examine their use in asymmetric synthesis. Methods developed for the synthesis of chiral sulfur derived salts will be extended to the synthesis of analogous selenium compounds. Optically active compounds will be achieved through face selective activation of isolated double bonds by these reagents with the appealing possibility of chiral catalysis through regeneration of the chiral sulfur and selenium compounds. A Research Planning Grant at this stage in Professor Kesler's career will allow her to explore a methodology for asymmetric synthesis that will form the basis for a competitive NSF proposal in a timely area. Addition across a double bond directed by a nearby functionality has been a fundamental method of achieving chiral compounds. Systematic studies will be undertaken to elucidate the abilities of chiral sulfonium and selenium compounds to discriminate between the different faces of isolated double bonds in organic compounds. In contrast to the previous methodologies, face discrimination affords a wide variety of optically active compounds in a more straight forward manner. ` _Á/>¢ ?Â ¥©Á ┤Á└Á%?║Á┤ ╝Á/│¥╣└╣¥` _?┤Á%